Undergraduate Research Experiences in Nuclear Physics at theIndiana University Cyclotron Facility

This award was made to Professor Olmer at Indiana University, as part of the Research Experiences for Undergraduates program. It will support undergraduates working with research scientists on research projects of mutual interest. This program is designed to encourage further study in the sciences by undergraduates. It is a response to the growing need for trained scientists and engineers.